Surveying Laboratory Enhancement.

This project introduces students in this institution's mining program to state-of-the-art surveying practices. By exposing students to Total Surveying Stations, not only is their surveying experience enhanced, experiments are performed that were not possible before the advent of equipment of the type used in this project. In their field work, students get hands-on experience and retrieve digital data with portable devices. In their laboratory work, students have a collection of software tools whereby they analyze their field data and use graphical programs to display and manipulate collections of their field data. This award is being matched by an equal sum from the grantee.